Symbiotic Decomposition of Lignocellulose by Termites

This proposal is focused upon the biodegradation/conversion of the lignocellulose and lignin, and related plant materials (humus), by termites that are rendered able to do this by virtue of their gut microbiota (bacteria, protozoa). The studies will include basic microbiological characterization of those organisms that can be cultivated, study of their biochemistry and physiology, and assessment of their molecular biological traits. The aim of the studies is to elucidate fundamental, functional interactions not only between bacterial and protozoal species, but with their termite hosts as well. The studies will be significant not only in the biological realm, but in understanding aspects of the global carbon cycle and global warming, as well.//